Bioartificial Organs: Science, Medicine & Technology BIOAO II) Conference, Alberta, Canada, July 17-22, 1998

9803634 Prokop This award is to support the participation of young investigators in the Engineering Foundation conference "Bioartificial Organs: Science, Medicine, and Technology" to be held July 17-22, 1998 in Banff, Canada. The objective of the meeting is to explore current and emerging approaches to the science and technologies associated with artificial organs and how the different fields of investigation interact. It is expected that new innovative and proactive interactions will develop among the three specialist groups participating in the meeting: materials and polymer scientists; bioprocess engineers; medical professionals. The young scientists to be supported by NSF funds will have an excellent opportunity to engage in such interactions. Persons who receive support from the award are to submit a letter report to the Division of Bioengineering and Environmental System on the technology(ies) with the greatest potential for the development of bioartificial organs in the next decade. Publication of a proceedings is scheduled within 10 months of the conference, thereby making the results of the conference available to a large audience. ***